Conference on the Neurone as a Computational Unit, June 28--July 1, 1988, King's College, Cambridge, England

Computational neuroscience is a subfield which is growing quickly at the present time. Putting what we know about the functioning of the nervous system into quantitative terms is becoming more appealing now that computers are affordable, easy to work with and sufficient data has been gathered about the systems in question. Mathematical models of various parts of the nervous system are currently being pursued by physiologists well trained in engineering methodology. But now engineers have taken an interest in modelling the various systems of the brain using their perspective. This action is to provide partial support for an international conference which will bring together neurophysiologists and neuroengineers from various countries to discuss important issues regarding modelling approaches in neuroscience.